ChemLinks Coalition: Making Chemical Connections

The ChemLinks Coalition is undertaking a five-year project to change the way students learn chemistry, increase scientific literacy for all students taking chemistry, and promote the process of educational reform. In collaboration with the ModularChem Consortium, faculty are developing, testing, and disseminating modular course materials that use active and collaborative approaches to learning. These materials, focused on the first two years of the chemistry curriculum, start with interdisciplinary questions important to students and to society (the molecular basis of life, the environment, technology), and in answering them develop an appreciation of how science is actually done. This approach is designed to reach a broader student audience more effectively than do traditional courses, an audience that includes students who are members of groups traditionally under-represented in science, non-science majors, and those taking chemistry as a supporting course, as well as chemistry majors. By providing a model for students preparing for careers in teaching, this approach has an impact on Teacher Preparation Programs. Collaboration among faculty from different disciplines and a number of institutions supports and reinforces those who want to make changes. These leading liberal arts colleges (Beloit, Carleton, Colorado, Grinnell, Hope, Kalamazoo, Knox, Lawrence, Macalester, Rhodes, Spelman, St. Olaf, Wooster) and research universities (Chicago, Washington - St. Louis) already have experience working together on chemistry curricular reform. An alliance with the Advanced Technology Environmental Education Center's coalition of 2-year institutions assures an impact on Advanced Technology Education Programs. By using the extensive Project Kaleidoscope network to promote reform, the ChemLinks Coalition involves a much larger and more diverse group of institutions in making systemic and sustainable changes in undergraduate chemistry education.